Midwest Topology Seminar

DMS-0215951
Stewart B. Priddy

This award provides partial support for speakers from
outside the area and for other active research mathematicians
with limited means of support to attend and participate in
the Midwest Topology Seminar, a triannual gathering of
Midwestern mathematicians, established over thirty five years
ago to provide a forum for new results and trends in topology.
Sites for meetings to be held during the course of this award
include Indiana University, Northern Illinois University,
Northwestern University, Ohio State University, Purdue University, Purdue University Calumet, University of Chicago, University of Illinois at Chicago, University of Illinois at Urbana-Champaign,
University of Kentucky, University of Michigan, University of Minnesota, University of Notre Dame, University of Wisconsin,
Wayne State University, Western Michigan University. Further information on current and past meetings is available
at: http://www.math.wayne.edu/~rrb/MTS/.